NSF-BSF: Searching for Physics Beyond the Standard Model at the LHCb Experiment

The project advances the progress of science by addressing some of the most important open questions in particle physics: whether new particles or forces exist, why matter and antimatter behave differently, and what dark matter is. It also strengthens national research capabilities by training students and early-career researchers in advanced data analysis, artificial intelligence, large-scale computing, statistical methods, and international scientific collaboration.

This award supports MIT researchers working on the LHCb experiment at CERN’s Large Hadron Collider. The project will make extremely precise measurements of particles containing heavy quarks to search for signs of new physics beyond the Standard Model, the current theory describing known elementary particles and their interactions. Even if a new particle is too heavy to produce directly, it can still leave subtle effects in rare particle decays. By studying such rare processes, the research carried out under this award can probe energy scales far beyond those directly accessible in today’s accelerators. The MIT-LHCb group will also continue leading searches for low-mass particles beyond the Standard Model, including possible “dark sector” particles that could help explain the nature of dark matter.

The award will provide research training for undergraduate students, graduate students, and postdoctoral researchers. The MIT-LHCb group will continue mentoring undergraduates in research and participating in programs such as the Research Science Institute and the MIT Summer Research Program. The group will also collaborate with the NSF Institute for Artificial Intelligence and Fundamental Interactions, using cutting-edge data-processing challenges from LHCb to drive AI innovation. Through these efforts, the award contributes to the development of a highly skilled STEM workforce and supports NSF’s mission to promote the progress of science, advance national prosperity and welfare, and strengthen the nation’s scientific capabilities.